Universal Scaling Laws in Biology

***
9873638
West
This activity will continue a study of the scaling laws relating organism size to such key parameters as metabolic rate. It will use a new model that examines the scaling of the hydrodynamic transport of essential materials through the network found in each organism. More general models will be considered, as well as possible extensions to other systems.
***